The Inquiry-based Classroom in Context: Bridging the Gap Between Teachers' Practice and Policy Mandates

9804929

Drayton

Educational reform efforts at both the National and State levels have mandated changes in science education intended to promote a deeper understanding of scientific concepts through an inquiry approach. Yet there is little documentation how teachers, who are involved in districts affiliated with systemic reform efforts, are making sense of this call to inquiry. How do teachers intepret this mandate and how does it express itself in their pedagogical practices, their use of curriculum, and in their assessment of students learning?